Plant Growth and Tissue Culture Facility

This award will support the purchase of necessary pieces of equipment for a multi-user plant growth and tissue culture facility at University of Arizona. NSF and the University will share the cost on a 1:1 basis. Primary users of the facility consist of 17 mostly young faculty members in the Departments of Plant Sciences and Plant Pathology. The facility will be used for research and teaching in the areas of plant growth and development, plant physiology/biochemistry, plant genetics/molecular biology, transformation technology, and host- pathogen interactions. Specific pieces of equipment include growth chambers, light banks, Laminar flow hoods, and shakers, and they will be installed in the new Agricultural Research Laboratory.